Core Support of Federal Facilities Council

The Year 2002 Technical Activities Program was formulated by the Federal Facilities Council in consultation with members of the FFC's seven standing committees and the senior representatives of the sponsor agencies (Attachment 3). The proposed program supports:

Conducting a two-day workshop on "Barriers and Incentives for Implementing Health-Protective Features and Practices in Indoor Workplaces" in accordance with the procedures of the National Research Council.
Formulating and publishing one information study on contracting and acquisition strategies and related issues.
Convening a one-day conference on physical security issues.
Convening a one-day forum focused on the future role of the federal government as an owner of facilities.
Convening two, one half-day government/industry forums on specific topics to be determined by the FFC.
Providing administrative and technical support for the FFC and its standing committees. This includes support for up to 35 committee meetings with guest speakers, maintaining and enhancing networking activities through the FFC Web site, and participating in industry conferences and forums.